Engineering Research Center for Institute for Systems Research

9402384 MARCUS This award supports the Engineering Research Center at the University of Maryland and the Harvard University to focus on the integration and control of complex engineering system for the next five years. The Center will use and expand its well-established industrial collaboration programs to facilitate the rapid transfer of developed system methodologies. This will be achieved through three cross-disciplinary thrust areas: 1) intelligent control systems which involves the design of robust control systems with many sensors and many feedback loops using algorithm and tools for optimization-based design, 2) intelligent signal processing and communication system which involves the modelling, design, and control of wireless and high- speed communication networks, 3) system integration methodology which involves model complexity, architectures for control, and communication systems. In addition, there are three demonstration projects: (1) electromechanical motion control prototyping project which will develop basic research and engineering innovation needed to build high-performance, low-cost, motion control system, (2) wire- less multimedia shop communication project which will develop the research and technology for designing multimedia communication subsystems for manufacturing, (3) virtual factories for electro- mechanical devices manufacturing project which will develop an integrated tool kit for design, planning, and manufacturing of electromechanical devices. This award provides support for the ERC for three years. ***